The 16th Annual Symposium "Plant Response to Celluar Dehydration During Environmental Stress", January 28-30, 1993, in Riverside, California

The Department of Botany and Plant Sciences, University of California, Riverside (UCR) has held a symposium each of the past 15 years on timely topics in plant physiology. The 16th Annual Symposium, entitled "Plant Response to Cellular Dehydration During Environmental Stress," will be held January 28-30, 1993, and will be organized by Professors Timothy J. Close and Elizabeth A. Bray. The objective of the 1993 Symposium is to bring together scientists working in the area of environmental stress, with the intention that discussion and presentations will lead to a greater understanding of cellular, physiological, and genetic aspects of stress adaptation. Speakers, especially young investigators, from abroad and other institutions in the U.S. will be invited. Time for discussion and poster presentation is allotted. Presented papers, as well as poster abstracts, will be published rapidly and inexpensively. Riverside is an ideal location for this symposium because: (1) there are a substantial number of faculty here and in Southern California with research interests in environmental stress; (2) Riverside is easily accessible; (3) UCR has built a reputation for successful symposia; (4) the close proximity to the 1993 Gordon Research Conference on Temperature Stress in Plants which will follow this conference.